The 1989 International Symposium on Symbolic and Algebraic Computation - Portland, Oregon; July 17-19, 1989

Computer algebra, symbolic computing, and formula manipulation systems are important tools for increased productivity in science and engineering. This award supports travel expenses for invited speakers at the 1989 International Symposium on Symbolic and Algebraic Computation.